Mathematical Sciences: Existence and Nonexistence of Positive Solutions for Some Superlinear Problems

The purpose is this project is to study the existence and nonexistence of positive solutions to superlinear elliptic boundary value problems; the typical case is where the nonlinearity is of polynomial type. Particular emphasis will be placed on domains such as balls, annuli, punctured balls, and exterior domains. Existence of positive solutions will be mainly addressed though fixed point theorems and degree theory. Nonexistence problems will be mainly studied through oscillation theory and Pohozaev identities. The proposed problems are motivated by a variety of situations arising in gas dynamics, nonlinear heat generation, quantum field theory, and Riemannian geometry among others. An integral part of this project will be a number of courses and seminars leading to familiarizing undergraduate and masters degree students with current mathematical research.